CAREER: Mechanistic Modeling of Turbulent Bubbly Flows in the Ocean Surface Boundary Layer

Oceanic bubbles play important roles in upper ocean dynamics and in air-sea gas exchange. This project will study their distribution near the ocean surface and their interaction with turbulence, and improve the representation in numerical models of their impact on the exchange of gases between the ocean and atmosphere. Randomly-distributed breaking waves and small- scale currents are two ubiquitous processes in the upper ocean. Their roles on bubble dynamics and bubble-mediated air-sea gas transfer have never been studied due likely to the challenges in observing and modeling of gas bubbles in those two dynamical processes. Utilizing state-of-the-art computer models that simulate the co-evolution of the two dynamical processes, gas bubbles, and dissolved gases based on first principles, this study will advance our fundamental understanding of bubble dynamics in the upper ocean and its coupling with upper ocean dynamics. It will also improve representation of bubble-mediated gas fluxes in computer models. The results will lead to improvements in understanding and modeling the transfer of important properties between the ocean and atmosphere, which in turn are important for weather and environmental prediction as well as coastal and marine ecosystem management.

The primary research objectives of this project are to better understand the distribution of gas bubbles and the coupling between bubbles and oceanic turbulence in the ocean surface boundary layer, and to more accurately parameterize bubble-mediated air-sea gas flux. Two hypotheses, identified based on previous studies and preliminary results, will be tested: (1) Stochastic breaking waves affect bubble trajectories and bubble-mediated gas flux through altering ocean boundary layer turbulence and generating bubbles at downwelling currents; and (2) Submesoscale currents alter bubble trajectories and bubble-mediated gas flux via interaction with ocean boundary layer turbulence. These hypotheses will be tested using a state-of-the-art large eddy simulation modeling framework. The coupled modeling framework consists of a Large Eddy Simulation model that simulates the ocean surface boundary layer turbulence with the impact of stochastically distributed breaking waves, a Lagrangian particle model that tracks bubbles and bubble properties, and an Eulerian concentration model for dissolved gases.